Conference: Meeting on Applied Algebraic Geometry: MAAG 2026

The Meeting on Applied Algebraic Geometry (MAAG) conference series is a southeastern regional conference series focused on interactions between algebraic geometry and other fields. The venue of the conference rotates between Clemson University, Georgia Institute of Technology, and Auburn University. This award provides support for the 2026 instance of this conference, which will take place at Clemson University on April 18-19, 2026. The MAAG conference series seeks to strengthen and grow a local network of support among applied algebraic geometers. The conference is structured to involve a wide representation of fields, and it is designed to spur new cross-disciplinary research. The MAAG conference schedule includes time for short presentations from graduate students and postdocs, as well as ample time for discussions, networking, and mentoring.

In the 2026 conference, presenters will discuss new developments in the quickly-evolving field of applied algebraic geometry. Research talks will be given by experts in many fields, including algebraic statistics, commutative algebra, data science, tropical geometry, algebraic combinatorics, numerical algebraic geometry, and symbolic computation. In addition, the conference will feature a poster session and lightning talks by graduate students and postdocs. The conference will also provide an introduction to and tutorials on the Macaulay2 computer algebra system, a popular software package for computations in applied algebraic geometry. For further information, see the conference website: https://klee669.github.io/maag.